Studies of Nuclear Reactions and Structure

This award wil support the experimental nuclear physics group at
Florida State University. The research will be carried out at the
FSU Tandem/LINAC accelerator facility and at other laboratories
around the U.S. Nine FSU faculty members are actively involved.
Research focus areas include a variety of nuclear reactions of
astrophysical importance, isospin purity of nuclei, new insights
into nuclear collective behavior, and properties of loosely bound
"halo" nuclei. The FSU has had primary responsibility for the Ring
Imaging Cherenkov detector for the PHENIX experiment at the
Relativistic Heavy Ion Collider (RHIC), and will pursue electron
measurements to look for nuclear medium effects on the perperties of
light vector mesons. At Jefferson Laboratory, the FSU group will
use high-quality tagged photon beams at the CLAS detector to search
fo rmesons with so-called exotic quantum numbers. This activity
also ties directly to participation in the development of the
proposed Hall D detector for Jefferson Laboratory. Graduate
education will be an essential component of the group's activities.